Taxonomic, Evolutionary, Biogeographic and Paleoecologic Studies of Silurian-Devonian Brachiopods and Other Groups

This study includes the following: 1. Completion of the series of worldwide Silurian Correlation charts: Continental Europe and Northern Asia (Asiatic Russia, Mongolia, Korea, Japan). 2. Obtaining biogeographically critical Silurian and Devonian brachipod collections from southern Thailand, northwestern Saudi Arabia, northern Chile and adjacent Argentina, to fill in critical blanks and establish better relations between large parts of the World. To further investigate the implications of the newly discovered terrestrial biogeography of the higher land plants (using spore tetrads) for the Llanvirn-Llandovery interval of the Ordovician and Silurian, and compare and contrast it with the biogeography of the associated marine environments. To further extend global, studies of post-Ibexian brachipod biogeography for the Ordovician at the generic level. Description of biogeographically critical Upper Silurian brachipods from Iran will also be carried out. 3. Completion for publication of the global studies involved in Project Ecostratigraphy. 4. Gathering information on the Ibexian-Whiterockian boundary interval, which is one of the major times of both extinction and subsequent adaptive radiation in the marine environment, and about the minor extinction event that occurred in the earlier Wenlockian for much of the World. 5. Completing the Treatise on Invertebrate Paleontology assignment, as part of the brachiopod volume revision, on the pentameroids and Paleozoic terebratuloids.